Nonlinear Interaction Between the Bridge Deck and the Abutments During Earthquakes

Bridge damage during past earthquakes indicates that the interaction between the deck and abutments might be an important factor. This project is to develop analytical models for investigation of this complicated phenomenon. The study will provide adequate response information for bridges and lead to much needed methods for seismic safety design of bridge structures.